Chemistry Outreach to Secondary Schools with a Mobile Chemistry Laboratory

The Chemistry Division will support Virginia Polytechnic Institute's proposed expansion of the use of their Mobile Chemistry Laboratory (MCL) that had received initial startup support from NSF and various other private, public, and corporate funding sources. Specifically, their planned program will expand the use of their MCL into more rural regions of southwestern Virginia and will establish two additional weeks of teacher workshops. In addition, a kit-based program will be developed for those schools that have adequate lab space but limited budgets and equipment. They plan to continue to develop the curriculum they initiated this past year. There will be increased efforts in the recruiting of teachers from underrepresented areas.